RUI: Computing Combinatorial Configurations: t-Designs & Ramsey Numbers

Computational techniques are being developed for discovering elusive combinatorial configurations, specifically: t-designs and Ramsey numbers. The search algorithms being employed in the two cases are similar as are the computational techniques and theoretical tools. In recent work the PIs have found a notable special design as well as a new family of designs. They are now refining the techniques used, developing new implementations, and constructing new algorithms to continue their computations. In their recent work on Ramsey graphs several new lower bounds were discovered for Ramsey numbers. The PIs are now exploring several new approaches for making further improvements in lower and upper bounds. It is hoped that they will compute the exact value of one or more of the small Ramsey numbers. The proposed work will continue the valuable work that the PIs started during their previous RUI grant which was for a period of only 12 months. The results of the previous grant have been highly rated and further results along the same line are anticipated. The proposed work provides very appropriate experience for the students involved.